School and conference in Poisson Geometry

Abstract

Award: DMS-1005829
Principal Investigator: Alan D. Weinstein

This grant supports travel to Brazil for US participants
(primarily graduate students and postdocs) at the conference
"Poisson 2010," to be held in IMPA in Rio de Janeiro, July 26-30,
preceded by a preparatory school of three days in length. With
roots in classical mechanics about 200 years ago and work of
Sophus Lie about a century ago, the subject of Poisson geometry
crystallized through work of Lichnerowicz and Kirillov in the
1970's. Its influence now extends to a wide variety of areas,
including symplectic geometry and topology, deformation theory,
representation theory, algebraic geometry, integrable hamiltonian
systems, and field theory. In recent years, Poisson geometry has
found new applications in string topology, the geometric
Langlands program, and the geometry of complex surfaces.
Developments in these and other timely subjets will be addressed
in the school and conference.

The meeting, whose full title is "Poisson Geometry in Mathematics
and Physics," is the seventh in a biannual series which brings
together mathematicians and mathematical physicists with common
interests in Poisson geometry and its applications. This
geometry provides a very important bridge between mathematics and
physics and between classical and quantum physics. Speakers at
the school and conference have been chosen not only for the
importance of their results but also for their ability to
communicate them to a broad audience of mathematicians and
physicists. Proceedings will be published in a manner which
makes them accessible at low (or no) cost to a wide readership,
in order to stimulate further study and research in the rapidly
growing area of Poisson geometry. Detailed information about the
conference, and about others in the biannual series, may be found
at poissongeometry.org.